Institute in Parallel Computing

A two-week institute in parallel computing is proposed. The objective is to give approximately 25 graduate and post-doctoral researchers a fundamental understanding of parallel computing. We will present a series of lectures on topics including parallel architectures for scientific computation, software tools to aid in implementing parallel algorithms, use of graphics representations in the construction of parallel programs, and vectorization. Participants will then experiment with test problems and with a specific application that they have brought with them to the institute. Ample time will be provided on the four multiprocessors in Argonne's Advanced Computing Research Facility. Some class time will also be spent reviewing UNIX and discussing the communications facilities available for local and remote access to these machines. The proposed institute will provide an excellent opportunity for university researchers to acquire knowledge and experience in the area of parallel computing. We are hopeful that after the institute is over, researchers will continue to use the machines in the Advanced Computing Research Facility to conduct experiments in parallel computing. Thus the institute will have the long-term benefit of increasing our understanding of the applications for which specific computer architectures are best suited. ---------------------------------------------------------------- This proposl is submitted for support for a two-week, twenty-five student institute (workshop) on parallel programming and computing. The institute will emphasize software tools, parallel algorithms and vectorization as applied to nuThe institute is a very important step in bringing parallelism to computational science.